Collaborative Research: Photochemistry at the Air-Aerosol Interface

Professors V. Faye McNeill at Columbia University and Yi Rao at Utah State University are investigating the influence of the unique chemical environment of the gas-aerosol interface photochemical reactions in three classes of reactants: nitrate, organic peroxides, and amines. The lack of techniques capable of directly observing interfacial aerosol processes has held back the fundamental understanding of photochemical reactions at the gas-aerosol interface. Professors McNeill and Rao and their students will use interface-specific scattering nonlinear optical spectroscopy techniques including electronic and vibrational sum frequency scattering (ESFS, VSFS) and time-resolved ESFS/VSFS to study aerosol surface photochemistry, reaction intermediates, and photochemical kinetics. They will also study aerosol kinetics in aerosol flow tube reactors and aerosol chambers under environmentally relevant conditions on timescales from seconds to hours, and bulk photochemical kinetics using transient absorption from microseconds to sub-picoseconds. Their studies will advance fundamental understanding and knowledge of surface-specific photochemistry in aerosols, and lead to improved representations of this chemistry in large-scale atmospheric chemistry models. This work will impact air quality. It will also benefit society by building the talent pool for the next generation of scientists, and through science communication.

This work will examine in-depth whether the unique chemical environment of the gas-aerosol interface (surface polarity, surface charge/electric field, surface pH, solute hydration, and preferential molecular orientation) leads to enhancement in photochemical reactions compared to the bulk processes. The team will also investigate whether the partitioning of amphiphilic species such as amines to the gas-aerosol interface enhances photochemical reaction rates. Laboratory activities will include (a) direct studies of aerosol surface photochemistry, reaction intermediates, and photochemical kinetics using a suite of recently developed high performance interface-specific nonlinear optical scattering spectroscopy techniques, namely, electronic and vibrational sum frequency scattering (ESFS, VSFS) and time-resolved ESFS/VSFS (b) studies of aerosol kinetics in aerosol flow tube reactors and aerosol chambers under environmentally relevant conditions on timescales from seconds to hours, and (c) detailed bulk photochemical kinetics experiments using laser flash photolysis long path absorption (LP-LPA). The experimental work will inform the development of new theory and numerical modeling approaches to describe surface-specific photochemistry in aerosols, as well as reactor and environment-scale modeling to investigate impact and translate these findings for use in large scale atmospheric chemistry models.